Photon Duplication

An experimental research program will be undertaken to realize in the laboratory the process of photon duplication, a novel process in which the photon statistics of an input beam of light is duplicated into two output beams, one of which can be measured while leaving the other for further manipulation. This process is of interest from a number of standpoints that are both fundamental and applied. Fundamentally, photon duplication is a phenomenon that has never been observed; it requires quantum- optic experimentation in a regime that has never been explored. It also leads to novel quantum nondemolition detection strategies that are efficient and do not require largepump power or explicit phase-sensitive measurements. From an applied standpoint, a photon duplicator can be used in a communication network as a transparent optical tap. Specifically, we propose to analyze the detailed physics of photon duplication and to perform an experiment that will demonstrate the process. A four-wave mixing experiment will be carried out in a regime where photon duplication is predicted to occur. A platelet of CdTe, pumped by a mode- locked and Q-switched Nd:YAG laser, will be used as the nonlinear medium. CdTe is chosen because it has been shown to have a large third-order nonlinearity with a sub-nanosecond response time. Photon correlations will be measured using a novel pulsed shot-noise detection scheme that we have developed. In addition, we will investigate avenues toward implementation of the process of photon duplication in nonlinear optical waveguides.